Metrology, Modeling, and Control for Photolithography

9628420 Spanos The next generation of integrated electronics call for the stable manufacture of 0.2 micron linewidth circuits. It is widely recognized that photolithography will play a vital role in realizing this objective, both through new process technologies and through modeling, metrology, and integrated control. This research proposal is motivated by the recognition that intelligent process control will play an enabling role in the development of reliable high-performance pattern transfer technology. The broad objectives of our proposed research are to develop, implement, and test integrated process control methods for various lithographic processes. To accomplish our research objectives, we anticipate using existing sensors, designing some new metrology schemes, developing control-oriented process and equipment models, and developing control and diagnostics strategies that integrate across the various processing steps involved. ***